Purchase of a Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is a non-degradative technique used to determine the positions and mutual interactions of atoms in molecules. Chemistry departments depend on NMR instrumentation for the enhancement of front-line research in a number of areas of chemistry and for utilization in undergraduate instruction. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry of Eastern Illinois to aquire a multi-nuclear high field NMR spectrometer. The acquisition will strengthen the training of chemistry undergraduates in this RUI institution and will enhance research efforts in the following areas of chemistry: 1) Synthesis of fused butyrolactones via dyotropic rearrangement 2) Maceral specific chemical characterization of Illinois coal 3) Unidentate bis(diphenylphosphino)ethane complexes as chelating agents 4) Intervalence charge transfer across iron-sulfur bridges.